Mathematical Sciences: The Theory of Automorphic Forms

Professor Huntley will work on several problems connected with automorphic forms. In particular, he will study non-holomorphic cusp forms on higher rank reductive groups. He hopes to prove an analogue of Weyl's law for such groups. He will also study small eigenvalues and their relation to the Ramanujan conjecture. Automorphic forms arose out of non-Euclidean geometry in the middle of the nineteenth century. Both mathematicians and physicists have thus long realized that many objects of fundamental importance are non-Euclidean in their basic nature. This field is principally concerned with questions about the whole numbers, but in its use of geometry and analysis, it retains connection to its historical roots and thus to problems in areas as diverse as gauge theory in theoretical physics and coding theory in information theory.